An Insulin-like Molecule from S. Cerevisiae

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. McKenzie to get preliminary data concerning an insulin-like molecule from yeast.